Presidential Faculty Fellows

9453467 Kellar The research plan involves molecular level understanding of filler and fiber interfaces used for polymer matrix composite materials, coupled with mechanical properties evaluaiton of the composite material. The teaching plan is multi-faceted, with the focus being developmen tof a Native American Middle School program. ***